Dynamic Probes of Tribological Processes

Two major areas of study dealing with fundamental issues in friction and wear will be pursued in parallel: 1) stress-included material removal along atomic and molecular steps will be characterized using scanning probe microscopy for ceramic materials in corrosive flluids. Activation volumes and thermal activation energies for the fundamental dissolution processes will be determined and used in a systematic modeling effort. The results will be applied to chemo-mechanical polishing of silicon and silicon dioxide materials. 2) transient electrical current ecxperiments for tribological probes will be carried out. They will be designed to provided information about the physics and chemistry of charge separartion, tribo-emission, and galvanic currents and their relation to adhesion forces and to fructioon, wear and lubricant degradation processes.***